Magma Mingling in the Plutonic and Volcanic Settings: Mechanisms and Effects of Compositional Contamination of Hosts by Enclaves

The principal investigator will study fine-grained magmatic inclusions in the plutonic rocks of Cadillac Mountain (Mount Desert Island, Maine) and the Tumacacori Mountains (southern Arizona). She will attempt to document the variety of contamination mechanisms and the effects of contamination of the host materials by these inclusions, and also to evaluate the magmatic processes which generated the original liquids. The results will help geologists better understand processes that affect the evolution of magmas in the Earth's lithosphere.